2001 Dagstuhl Seminar on Deduction to be held March 4-9, 2001 at the Dagstuhl Seminar Center in Wadern, Germany

An international seminar on deduction - organized by Prof.
Ulrich Furbach (University of Koblenz, Germany), Prof.
Harald Ganzinger (MPI Saarbrucken, Germany), Prof. Ryuzo
Hasegawa (Kyushu University, Japan), and Prof. Deepak Kapur
(University of New Mexico, Albuquerque, NM, USA)- will be
held March 4-9, 2001 at the Dagstuhl Seminar Center in
Wadern, Germany. About 75 automated deduction researchers
from around the world have been invited to participate. This
award pays for travel funds for American invitees to attend
the seminar.